Molecular Analysis of CNS Barrier Structures

The formation of specific, functional interactions between neurons is critical to the development of the nervous system. The precise quidance of axons to target cells is thought to result from a combination of stimulatory and inhibitory signals. Barrier or boundary structures are hypothesized to function by inhibiting the growth of embryonic axons into inappropriate environments. Two proteins, EAP-300 and claustrin, have been identified in the embryonic chick nervous system and shown to be expressed in barrier structures. The cellular expression and biochemistry of these two proteins will be studied in detail. In addition, functional in vitro assays will be performed to determine whether these proteins negatively regulate axonal growth and interact to mediate the function of barrier structures. These studies pertain to understanding basic mechanisms involved in the development of neuronal specificity and the possibility that barrier-associated molecules impede successful nerve regeneration in the mammal.